Computer Integrated Engineering Laboratory

A two semester sophomore engineering laboratory, "Introduction to Experimentation", is computer integrated. Each of 24 experimental stations will be equipped with a network computer and integrated word processor, spreadsheet, database, and graphics software. The computer is interfaced to a digital multimeter. Current experiments are performed by the student using the spreadsheet and the word processor for all data analysis, graphics, and lab report production. The campus network provides data transfer and printing on a local laser print server. In addition, data acquisition of electrical signals are computerized, using the multimeters and digital oscilloscopes. This lab improvement update is an important addition to the curriculum because the computer engineering and technology tools that are currently used professionally must be included in a modern curriculum. In addition to being a significant advance toward that goal, the laboratory improvement provides a platform for further implementation of computer assisted experimentation. This lab is taken by all engineering and science sophomores, so that it has the widest possible exposure, and in addition, it supplies a base of student expertise that can be built upon in the following two years.